Computing Science and Mathematics: A Laboratory-Based Curriculum

The Departments of Computer & Information Science and Mathematical Sciences are joining in an effort to improve the programs offered by each department and to create a new undergraduate concentration in scientific computing. The goals are to: (1) keep current a computing science curriculum; (2) educate students from other disciplines in the science of computing; and (3) strengthen the applied mathematics curriculum with the inclusion of strong scientific computing and modeling components. The laboratory will support the hands- on approach of the new curricula.